Conference on Microeconomic Perspectives on Aggregate Phenomena, Northwestern University, August 1988

This proposal requests funding for a conference on "Microeconomic Perspectives on Aggregate Phenomena" to be held at Northwestern University during August of 1988. Topics which are likely to be included are labor markets and intertemporal contracting issues, financial markets with an emphasis on endogenous choice of security structure, long-term growth and its determinants and macroeconomic coordination problems. These are all areas of extremely active theoretical research and experience indicates that bringing people together who are working on the "cutting edge" will lead to fruitful interaction. The conference will run for one week (five days) with three formal seminars given on each day. The set of theoretical topics are very important in macroeconomics but they have tended not to be adequately addressed by other week-long conferences of small size. The ensuing publications should yield additional opportunities for interaction between researchers with common interests.